The Topology of Quantum Invariants

DMS-0103922
Justin D. Roberts

The goal of this project is to try to understand
the topology underlying quantum invariants in three
dimensions. The current state of knowledge seems inadequate
for explaining what kind of topological information the
invariants carry, and therefore what kind of applications
in three-dimensional topology they might have. However it
has revealed (through the frameworks of TQFT and Vassiliev
theory) a wealth of very interesting algebraic structures,
which seem to be specifically related to topology in three
dimensions, and so should be thought of as kind of
``new algebraic topology'' in three dimensions.
Roberts intends to try to bridge the gap between this new
topology and classical algebraic topology. There are three
main areas of investigation. The first is K-theory, which
could help to explain the relationship between quantum knot
invariants and Vassiliev invariants (for example, why the
Jones polynomial is a polynomial). The second is Rozansky-Witten theory, a very interesting new example of a TQFT which
provides new hints about intepretation of the invariants,
and could have additional applications in complex or
hyperkaehler geometry. The third is the hyperbolic volume
conjecture of Kashaev, Murakami and Murakami. This conjecture
seems to fit into a general pattern of ideas relating
quantization (and specifically, 6j-symbols) to classical
geometry; ideas which might provide a conceptual context
for the conjecture.

To a mathematician, a knot is what you get by tangling up a
piece of string and then gluing its ends together. It is clear
that there are qualitatively different ways of doing this;
trying to describe and understand these ways forms a branch
of topology, which might be thought of as what remains of
geometry when quantitative questions are ignored. The main
tools of knot theory are "topological invariants", numbers
which can be associated to knots and which encode some
information about their structure. During the last sixteen
years, ideas borrowed from the physics of quantum field
theory have led to the discovery of many new and beautiful
invariants called "quantum invariants", but because of this
unusual origin, their meaning remains very mysterious, and
their potential unfulfilled. The goal of the project is to
use some new ideas to try to explain this mystery and to
bridge some of the gaps between geometry, topology, and
physics. The work should contribute to the healthy exchange
of ideas between these disciplines, and stimulate new work in each.